Support for Federal Long Range Ocean Science Planning

The Joint Oceanographic Institutions, Inc., will provide a broad range of services in support of Federal interagency planning related to ocean sciences over the next three years. These services will include, but not be limited to, providing staff and logistics support for specific long-range planning activities of the sponsoring Federal agencies, in- cluding some related to global change; convening and organizing of sci- entific meetings, synposia, and workshops; development and publication of documentation for such activities and resulting reports; and assist- ing the Federal agencies in integrating these long-range planning acti- vities with parallel activities of other countries at the international level in order to assure that gaps in planned programs are identified and filled and duplication of effort is minimized.